Computerization of Introductory Physics Laboratories

Western Illinois University will purchase six air track systems, six photogate systems, six rotational dynamics systems, six measurement interfaces, and six microcomputers. This equipment will be used to improve instruction in introductory physics laboratory courses. Physics and pre-engineering students will receive a systematic introduction to the laboratory applications of microcomputers including data acquisition, instrument control, data analysis; and data display. Western Illinois University will match the NSF grant with an equal amount of funds.